CI CoE: Demo Pilot: Minority Serving Cyberinfrastructure Consortium

This award is funded in whole or in part under the American Rescue Plan Act of 2021 (Public Law 117-2).

The Minority Serving - Cyberinfrastructure Consortium (MS-CC) is a collaborative initiative to improve cyberinfrastructure at Historically Black Colleges and Universities (HBCUs), Tribal Colleges and Universities (TCUs), Hispanic Serving Institutions (HSIs) and other Minority Serving Institutions (MSIs). In collaboration with Internet2 and the American Indian Higher Education Consortium, MS-CC is developing mechanisms to increase access to cyberinfrastructure resources, funding, and professional development opportunities for faculty, staff, and students at HBCUs, TCUs, HSIs, and other MSIs. MS-CC is taking an agile and adaptive approach to operating as a consortium, with a long-term commitment to learning and adjusting based on successes and lessons learned, matched to the diverse size and missions of these colleges and universities.

A key outcome of this grant is the formalization of a vibrant community of practice across MS-CC campuses that involves collaboration on cyberinfrastructure, education, and research applications. This grant enables HBCUs, TCUs, HSIs and other MSIs to accomplish together what they cannot do separately. The MS-CC is broadening participation in science, technology, engineering, and mathematics (STEM) by historically underrepresented groups in the United States’ research enterprise, enabling new perspectives to emerge and expand capabilities for the nation. MS-CC is advancing our nation’s economic growth, national security and global prosperity in ways that reflect the unique expertise and talent from HBCUs, TCUs, HSIs and other MSIs.